Research Experiences for Undergraduates at James Madison University

Dr. Daniel M. Downey and other members of the Chemistry Department of James Madison University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, eight undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects range through the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A feature of this program is the intention to bring in faculty from neighboring institutions with the aim to foster research that will continue throughout the academic year to facilitate and strengthen regional interactions with this functioning as a regional REU site.